Geological models for Explorations of Dynamic Earth (GEODE): Integrating the power of geodynamic models in middle school Earth Science curriculum

The Discovery Research K-12 program (DRK-12) seeks to significantly enhance the learning and teaching of science, technology, engineering and mathematics (STEM) by preK-12 students and teachers, through research and development of innovative resources, models and tools (RMTs). Projects in the DRK-12 program build on fundamental research in STEM education and prior research and development efforts that provide theoretical and empirical justification for proposed projects. This project will contribute to the Earth science education community's understanding of how engaging students with dynamic computer-based systems models supports their learning of complex Earth science concepts regarding Earth's surface phenomena and sub-surface processes. It will also extend the field's understandings of how students develop modeling practices and how models are used to support scientific endeavors. This research will shed light on the role uncertainty plays when students use models to develop scientific arguments with model-based evidence. The GEODE project will directly involve over 4,000 students and 22 teachers from diverse school systems serving students from families with a variety of socioeconomic, cultural, and racial backgrounds. These students will engage with important geoscience concepts that underlie some of the most critical socio-scientific challenges facing humanity at this time. The GEODE project research will also seek to understand how teachers' practices need to change in order to take advantage of these sophisticated geodynamic modeling tools. The materials generated through design and development will be made available for free to all future learners, teachers, and researchers beyond the participants outlined in the project.

The GEODE project will develop and research the transformational potential of geodynamic models embedded in learning progression-informed online curricula modules for middle school teaching and learning of Earth science. The primary goal of the project is to conduct design-based research to study the development of model-based curriculum modules, assessment instruments, and professional development materials for supporting student learning of (1) plate tectonics and related Earth processes, (2) modeling practices, and (3) uncertainty-infused argumentation practices. The GEODE software will permit students to "program" a series of geologic events into the model, gather evidence from the emergent phenomena that result from the model, revise the model, and use their models to explain the dynamic mechanisms related to plate motion and associated geologic phenomena such as sedimentation, volcanic eruptions, earthquakes, and deformation of strata. The project will also study the types of teacher practices necessary for supporting the use of dynamic computer models of complex phenomena and the use of curriculum that include an explicit focus on uncertainty-infused argumentation.